2001 East Asian Pacific Region ILTER Meetings, Mongolia

0108768
Goulden

This is a workshop proposal submitted by Dr. Clyde Goulden, Academy of Natural Science of Philadelphia, to request travel expenses to enable 12 U.S. scientists to attend the meeting of the East Asian Long-Term Ecological Research Network in Ulaanbaatar, and then presentations and field experiments at Hatgal on Lake Hovsgol, Mongolia, from July 2-10, 2001. Mongolia lies in the transition zone between the cold continental desert, and the taiga boreal forest of Siberia. The Mongolian LTER (MLTER) includes ecosystems of the Gobi, semi-desert, steppe/forest, taiga forest, and freshwater habitats, and is an important network for global environmental research. The scheduled activities include focused presentations, hands-on research training and in-situ field measurements in a range of ecosystems. The purpose of this workshop is to exchange research results in ecology and to foster collaboration among the scientists from the U.S. and East Asia. The NSF and the Mongolian National Academy of Science jointly support this workshop.